Institute for Trustworthy AI in Law and Society (TRAILS)

Artificial Intelligence (AI) systems have potential to enhance human capacity and increase productivity. They also can catalyze innovation and mitigate complex problems. Current AI systems are not created in a way that is transparent making them a challenge to public trust. The opaque processes used produce results that are not well understood. Trust is further undermined by the perceived harms that AI systems may cause. This lack of trust will result in slower adoption of these AI technologies. The TRAILS (Trustworthy AI in Law and Society) Institute is a partnership of the University of Maryland, The George Washington University, Morgan State University, and Cornell University. It encourages community participation in AI development of techniques, tools, and scientific theories. Design and policy recommendations produced will promote trust in AI systems. A first goal of the TRAILS Institute is to discover ways to change the design and development of AI systems. This will help communities make informed choices about AI technology adoption. A second goal is the development of best practices. This will foster AI innovation while keeping communities safe, engaged, and informed. The TRAILS Institute has explicit plans to provide improved understanding of the risks and benefits of AI-enabled systems.

The TRAILS Institute's research program identifies four key thrusts. These thrusts target key aspects of the AI system development lifecycle. The first is Society. It involves increasing societal participation throughout all aspects of AI development. This ensures the values produced by AI systems reflect those of its beneficiaries. This includes community-based interventions and adaptations for the AI development lifecycle. The second thrust is Technical Design. It includes the development of algorithms to promote transparency and trust in AI. This includes the development of tools that increase robustness in AI systems. It also promotes user and developer understanding of how AI systems operate. The third trust is Socio-Technical Perceptions. This involves the development of novel measures including psychometric techniques and experimental paradigms. These measures will assess the interpretability and explainability of AI systems. This will enable a deeper understanding and perception of existing metrics and algorithms. This provides understanding of the values perceived and held by included community members. The fourth thrust is Governance. It includes documentation and analysis of governance regimes for both data and technologies. These provide the underpinning AI for the development of platform and technology regulation. Ethnographers will analyze the institute itself and partner organizations. They will document ways in which technical choices translate to governance impacts. The research focus is in two use-inspired areas. The first being information dissemination systems (e.g., social medial platforms). The second is energy-intensive systems (e.g., autonomous systems). The institute's education and workforce development efforts in AI include new educational offerings. These cater to many markets, ranging from secondary through executive education. The TRAILS Institute is especially focused on expanding access to foundational education. The institute will work with communities to learn from, educate, and recruit participants. The integration of these communities into this AI research program increases participation in AI development and governance.

The National Institute of Standards and Technology (NIST) is partnering with NSF to provide funding for this Institute.